Curation and Revitalization of the Recent Mammal Collection,Los Angeles County Museum of Natural History

The Mammalogy Section of the Los Angeles County Museum of Natural History has exhibited rapid growth over the past several decades, and now comprises more than 85,000 catalogued specimens, as well as an uncatalogued backlog of approximately 9,000 additional specimens. In size, this mammal collection is the ninth largest in North America and ranks among the 20 largest collections in the world. The collection includes representatives of tropical species from around the world, as well as the holdings of the Marine Mammal Laboratory. The Section has recently established a frozen tissue collection and laboratory facilities for molecular biology, a tool used in reconstructing the evolutionary relationships among taxonomic groups. Dr. Sarah George, Associate Curator in the Section of Mammalogy, proposes completion of all preparation and computer cataloging of the backlogged specimens. The proposed curatorial activities will bring important collections into the mainstream of research. Until they are properly prepared, curated, and entered into the LACM computer database, it is difficult, if not impossible, for researchers to gain access to and knowledge of these important specimens. Systematic collections in natural history museums are the most readable form of the evolution of life on earth. Researchers in ecology, systematics, biogeography and evolutionary biology are completely dependent on these research resources, and their continued growth and proper curation are critically important.